NSF Young Investigator

9357603 Cory This NSF Young Investigator award deals with research and teaching in areas related to the development of new nuclear magnetic resonance methods to areas that include solid-state imaging, the study of diffusive scattering from solid boundaries, and high resolution liquid state spectroscopy of biomolecules. ***